Quaternary Lasers for Guided Wave Optical Communications

This program of research focuses on two areas which will help the development of high performance optical fiber communication systems. The first deals with semiconductor lasers capable of stable, single wavelength operation and the second is concerned with nonlinear coupling in waveguides. In the laser problem area, a comparison of the various known schemes for mode stabilization will be made along with the experimental study of new techniques. The expected performance of various mode stabilized lasers will be examined and possible ways to fully utilize their potential will be explored. Research will also be conducted on coupled waveguides for pulse shaping and for power combining from two or more lasers. Included in the study are the nonlinear refractive and absorptive properties of multiple quantum well (MQW) structures and the spectral behavior of MQW lasers; the former for possible use in guided-wave optics and the latter for possible use as a tunable source.